A Cooperative Association for Internet Data Analysis (CAIDA)

This award supports a three year project to promote greater industry cooperation in architecting and managing the global Internet infrastructure. It addresses global engineering concerns that are highly dependent upon cross-ISP coordination, particularly those requiring measurement of Internet metrics. It addresses ISPs' emerging need for technical meahnaisms to facilitate service guarantees and financial settlements between providers. Specifically, the CAIDA endeavors to: identify, develop and deploy measurement tools across the Internet; work with commercial providers to provide them with a neutral, confidential vehicle for data sharing and analysis; provide networking researchers and the general Internet community with current data on Internet traffic flow patterns; assist in the introduction/deployment of emerging Internet technologies such as multicast, Ipv6, web caching, bandwidth reservation protocols, etc; and enhance communications between commercial Internet service providers and the broader Internet communities. The goal is to have both government and industry participate in the project's creation and operation. The project is envisioned as a supporting framework for active tasks to be defined by researchers in conjunction with CAIDA members. Tasks will be defined through proposals by CAIDA researchers to one or more CAIDA sponsoring members; jointly proposed by CAIDA researchers and CAIDA sponsoring members; or solicited by one or more sponsoring members of CAIDA. It is expected that the government's role in funding the project will diminish as industry support increases.